Mathematical Sciences: Evolution Inclusions and Optimal Control

This project consists of two parts; the study of evolution inclusions and the study of optimal controls problems governed by nonlinear evolution equations. The first part is concerned with evolution in abstract spaces, allowing the possibility of unbounded, multivalued and nonlinear operators. The second part is concerned with the existence of optimal controls for various types of problems and the properties of such controls. Optimal control problems arise naturally in aerospace engineering, robotics, economics and other areas within physical and social science. The second part of the project has relevance to these problems whereas the first part of the project involves the development of the mathematical tools used in the second part.